Response of Mammals to Late Quaternary Global Warming

Mammal fossils from 14 sites distributed along the central Mississippi River valley from southern Missouri to northern Iowa will be used to reconstruct paleoclimatic changes for the last 20 ka. To accomplish this project faunal remains (ca. 4500-5000 specimens) from seven sites will be identified and analyzed. Fossils from four sites have already been identified and analyzed and data from electronic catalogs can be captured for analysis in this study. An additional four sites have been analyzed and published; their data will be encoded from the literature. Taphonomic investigations will assist in defining the size of the catchment areas for the faunal samples. Radiocarbon dates will established absolute chronologies. Bone dates will be based on two amino acid fractions (proline and hydroxyproline) to insure the accuracy of dates and to directly date individual species of small mammals. Quantitative paleoclimatic reconstructions will be based upon both Climate Space Sympatry (CSS) and Response Surface Analysis (RSA). These techniques, or variations thereof, have provided paleoclimatic interpretations of beetles and vegetation, respectively. Comparisons of these two techniques for the mammalian database should elucidate local and regional variations. The mammalian RSA will be directly comparable to the pollen RSA; therefore, it should provide another means of examining local and regional climate patterns. Results from this project will document mammalian responses to global warming in the late Quaternary, but they should also facilitate knowledge of potential affects for future climate change.